I-Corps Node: NSF Bay Area Regional I-Node Program

This project is a renewal of the Bay Area Regional I-Corps Node to continue creating a robust and broad-based entrepreneurship infrastructure built on the scientific, technology, and engineering strengths as well as the business thought leadership of three globally recognized universities, the University of California, Berkeley (UC Berkeley), the University of California, San Francisco (UCSF), and Stanford University. This I-Corps Node will continue building on its success of applying and disseminating the Lean Launchpad methodology through classes and training for both new trainers and early-stage startups. These startups will drive creation of sustainable, scalable science and technology-based startups with both regional and national impacts. The I-Corps Node also will raise awareness of the value of entrepreneurship among science and engineering faculty and students, using specialized programs to drive forcing mechanisms for collaboration. The success of the I-Corps Node itself will be the subject of continual evaluation and analysis, consistent with Lean LaunchPad principles, to develop and disseminate best practices for this region and the nation. A central focus of the Node's work will be finding more efficient ways of solving the two-sided market of connecting scientific and technical talent with business talent. A key question that will be elucidated by this I-Corps Node's research is whether structured mechanisms or a more organic approach will achieve the most favorable outcomes.

The partner schools have been key contributors to the National Innovation Network in the development of new curriculum and advanced tools. The Node will continue to disseminate the Lean LaunchPad classes widely throughout the Node via classes like Hacking For Defense at Stanford. The Node will also create specialized programs for government funded research centers within universities and governmental agencies ,such as NSA, with the ultimate goal of financial sustainability. The training products and programs created by the I-Corps Node will have broad impact through their widespread dissemination throughout the Node network and beyond. All activities and programs at the I-Corps Node will facilitate the inclusion of groups from diverse regions, economic backgrounds, and ethnicities.